The Geochemical Consequences of Fluid Immiscibility on Ore Deposition (Earth Science)

Fluid inclusion evidence exists in a number of economic ore deposits suggesting a link between the onset of fluid immiscibility and initiation of ore deposition. The effects of fluid immiscibility on mineral equilibria and ore deposition can be assessed by incorporation of a modified Redlich-Kwong activity model for H2O and CO2 from Bowers and Helgeson (1983) into the EQ3/6 chemical equilibria and mass transfer computer code (Wolery, 1978, 1979, 1983). This model will account for loss of components from the system and the effects of two-phase separation on pH and chemical speciation of the fluid, as well as mineral stabilities and deposition. In addition, stable isotope partitioning between liquid and vapor phases and simultaneously forming mineral phases will be considered. Preliminary calculations for a fluid intersecting the H2O - CO2 miscibility gap by a drop in pressure at 250oC are presented. The model predicts the expected rise in pH upon CO2 loss from the system as well as deposition of carbonate minerals. One of the paths results in deposition of substantial amounts of metal sulfides at the onset of fluid immiscibility. Dr. Bowers will teach a course entitled Thermodynamics of Geologic Processes, present a series of graduate lectures on various aspects of her work, and bring to Harvard complete computer capabilities for geochemical modeling appropriate to the course and for further student use on their own research projects. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.